Midwest Algebra, Geometry and their Interactions Conference; Notre Dame, IN; October 8-11, 2005

The investigators are organizing the Midwest Algebra, Geometry and
their Interactions Conference (MAGIC05) at the University of Notre Dame
during the period October 8-11, 2005. The meeting will highlight and showcase the recent work done in the areas of Algebraic Geometry and Commutative Algebra but it will also focus on their applications in and interactions with neighboring fields. Particular attention will be paid to bringing together groups, namely geometers, algebraists and applied mathematicians, who normally do not interact in conferences, and in this way generate new collaborations.

The conference will be organized in a series of plenary lectures and
some shorter talks organized in parallel sessions. Among the topics
that will be discussed by top experts at the conference, at a level
accessible to an audience of graduate studens, we list: algebraic
combinatorics, cryptography and coding theory, liaison theory, Hilbert
functions, Hilbert schemes, homological methods, numerical methods,
Rees algebras, resolutions of singularities, singularity theory,
tight closure, and vector bundles.

We will strive to provide an opportunity for graduate students and researchers in postdoctoral positions to be exposed to the best recent work in these areas, and to become acquainted with the top experts as well as with their peers.

We remark that in order to promote Mathematics among the diverse population of Notre Dame students as well as among the non-academic community, the conference will be enhanced by a public lecture on the importance and ubiquity of Mathematics in everyday life. The lecture will be delivered by Professor Bernd Sturmfels.